RUI: Exploring the Chemical Homogeneity of Globular Cluster Systems

AST-0098489
Briley

With the support of this award, Dr. Michael Briley, University of Wisconsin-Oshkosh, will increase the depth and breadth of our understanding of the light element abundance inhomogeneities found in globular clusters in the Galaxy. These objects are of particular interest in astronomy because of their roles as laboratories for the study of how low mass stars evolve, and because they are some of the oldest objects for which reliable ages may be obtained. As such, they contain at least a partial chemical record of events and conditions during their formation. Dr. Briley has laid out an observing/analysis campaigns to address a major data deficiency in the chemical records of globular cluster stars. The projects have been chosen not only for potential contribution to the field of astronomy, but also because of their accessibility to faculty and students in a primarily undergraduate institution where the bulk of the work will take place. This award is made through the Research in Undergraduate Institutions (RUI) program in the Division of Astronomical Sciences at NSF.

***